CT-ER: Security and Privacy Solutions for Data-Centric Sensor Networks

Proposal Number: NSF-0627382

TITLE: Security and Privacy Solutions for Data-Centric Sensor Networks

PI: Sencun Zhu ([email]), Co-PI: Guohong Cao ([email])

As sensor networks scale in size, so will the amount of sensing
data generated. The large volume of data coupled with the fact
that the data are spread across the entire network creates a
demand for efficient data dissemination/access techniques to find
the relevant data from within the network. This demand has led to
the development of data centric sensor (DCS) networks, where
sensor data rather than sensor nodes are named based on attributes
such as event type or geographic location. However, saving data in
the network also creates critical security problems, which have
not been addressed by previous work.

The objective of this research is to design secure DCS systems
which provide two fundamental security services: data
confidentiality and location privacy. Three types of attack models
with increasing attacker capabilities are considered, including
local passive attacks, sensor-assisted passive attacks, and
compromise-based active attacks. Techniques based on the principle
of least privilege, dummy traffic and filtering, location privacy
and query optimization are designed to defend against the attacks.

The success of this research will have a much broader impact on
making sensor networks more affordable and amenable to commercial,
civilian, and military applications. It has the potential to
foster new research in the privacy perspective of sensor networks.
The results from this research will be disseminated widely through
high quality publications and talks. The proposed research will
also be integrated with the education curricula at Penn State.